Professional Development and Enrichment Program for Physics and Physical Science Teachers of Grades 7-12

This is a 39 month program for underprepared physics and physical science teachers from the area surrounding Albany, Georgia. This program will provide significant content and pedagogical training in physics for 16 high school physics teachers, and similar training in physical science for 16 junior high school teachers. Teachers selected for the program will participate in a series of three six-week summer workshops together with academic year follow-up activities. Graduate credit will be available for each summer workshop completed. The workshops are intended to equip the participants to serve as resource teachers in physics or physical science in their schools and school districts. Albany State College is a traditionally black institution. This program is expected to serve substantial number of minority teachers.